Dissertation Research: Alternate Life History Adaptations in an Anuran Species

This research uses field and laboratory studies to evaluate the following hypotheses concerning the evolution and maintenance of satellite behavior in an anuran population: (1) calling and satellite behavior are alternatives that yield equal fitnesses; (2) an inability to acquire suitable calling sites forces adoption of satellite behavior; (3) individuals who are less preferred as callers are often more successful as satellites; (4) satellite behavior is a tactic adopted when energy reserves are too low to support sustained calling; and (5) satellite behavior is a size or age specific tactic adopted to conserve energy for higher growth rates. These hypotheses are not mutually exclusive, and research will focus on how a complex suite of environmental, social, and physiological variable interact. The proposed research will contribute significantly to our understanding of intraspecific behavioral variation. Alternative behaviors have recently received a great deal of theoretical interest, yet few studies have gathered the data requisite for a thorough understanding of the theory. The proposed research will allow a rigorous and simultaneous evaluation of the major hypotheses in this field.